Industry/University Cooperative Research Project: Fundamental Studies of Detergent Surface Active Phenomena

The basic mechanism by which anionic and nonionic surface-active agents such as Dioctyl sodium sulfosuccinate and ethoxylated alcohols remove oily soils during low-temperature processes is investigated. Videomicroscopy studies at Rice using a recently developed experimental technique will reveal the nature of the dynamic behavior which takes place when a detergent solution contacts oil under various conditions. Experiments at Shell Development Company using radioactive tracers will determine the degree of soil removal from small samples of fabric for the same detergents and oils and for the same conditions of temperatures, water hardness, and pH. A variety of pure surface-active compounds are used in these experiments including mixtures of negatively charged and uncharged detergents and oils and fatty compounds of the types found in typical laundry soils. Diffusion path theory will be used to provide a fundamental understanding of the results in terms of the equilibrium phase behavior of the various systems. A key objective is to be able to predict when various types of microemulsions or liquid crystals form between the original detergent solution and oil and when spontaneous emulsification and related interfacial instabilites occur during the solubilization process.